Mathematical Sciences: Seventh International Conference on Multivariate Analysis

Many of the really exciting advances in sciences are now being made in highly interdisciplinary environments; and many of the important aspects revolve around statistical issues. This conference will provide a forum in which to examine three broad directions of expansion of multivariate analysis. These include new directions in graphics, robust estimation, multiple time series, bootstrapping and meta analysis. The impact of multivariate environmental statistics on environmental research, policy and management is a second focus of the conference which will also address contemporary statistical issues relating to the environment, to ecology and to environmental health. Technical sessions are planned on multidimensional signal processing with participation of specialists in this area with expertise in statistics and probability and from engineering.